Machining with Abrasive-Waterjets

This proposal is to conduct Phase II research on machining with abrasive-waterjets under the SBIR Program. The feasibility of machining with abrasive-waterjets has been demonstrated in the SBIR Phase I research study in which both milling and turning experiments were conducted. In the Phase II research milling will be investigated in greater detail. Linear cutting tests will be conducted on selected materials that are conventionally hard to machine. Examples include ceramics, composites, and exotic alloys. Basic and special cutting tests will be conducted to develop a fundamental understanding of the effects of milling-related parameters on machining results. Models will be developed for the prediction of quantitative and qualitative milling results as well as cost of machining. The response of machining parameters to control signals and its effect on machining results will be experimentally investigated. Depth sensing techniques will be investigated for possible future implementation. The investigator is well qualified to conduct this research. A Phase III effort is planned to further develop and commercialize this approach.